U.S.-Japan Joint Seminar: Computers in Heat Transfer Science/October 1991/Tokyo, Japan

This award will support the participation of six U.S. scientists in a joint seminar on "Computers in Heat Transfer Science," to be held in Tokyo, Japan, in October 1991. Among the main topics to be discussed are forced convection, natural convection, phase changes, radiative heat transfer, and heat transfer in combustion. Experimental, theoretical, and a combination of the two approaches will also be featured. Significant issues to be addressed are: (1) in what details can we theoretically clarify hitherto unresolved heat transfer processes, if the performance of computers is upgraded 10-fold or even 100-fold from that of computers available today; (2) how far can we improve the accuracy of heat transfer measurements if we are equipped with data acquisition and processing equipment in the laboratory that are more powerful than that currently available by a factor of 10 or 100; and (3) what role can heat transfer specialists play to develop the technology that is essential in ushering in computing equipment that is 10 or even 100 times more powerful than those in existence today? The advent of computers has played a major role in the advancement of the science of heat transfer as well as in the solution of many practical problems. Both the United States and Japan have made significant contributions to advance the knowledge of heat transfer and are also among the most advanced countries in the development and utilization of microelectronics and computing technology. The objective of the seminar is to bring together leading researchers from both countries in an effective forum to review the current impact of computers in heat transfer research and discuss how the continuing advances in computer technology will impact the development of heat transfer science. The co-organizers of the meeting are Professor Kwangtzu Yang of the University of Notre Dame and Professor Wataru Nakayama of the Tokyo Institute of Technology. This seminar is the third in a series of joint meetings between the United States and Japan sponsored by NSF and the Japan Society for the Promotion of Science. The first was held in Tokyo in 1981 and the second in San Diego in 1985.